Parity and Time Reversal Tests in Atoms

This work continues recent advances in atomic physics experiments designed to find and measure violations of parity and time-reversal symmetries. A new laser source and other improvements to the measurement of the electron dipole moment in mercury should make an exacting test of low energy supersymmetry and other models in which T-violation should occur naturally. An improvement of the measurement of parity violation in thallium, as observed through optical rotation, from a 1% to a 0.3% accuracy is sought. Finally, the first steps in a PNC measurement in the barium plus ion are being undertaken, with the long-term goal being a decisive atomic test of electroweak physics complementary to the best high energy accelerator tests.